SMET Research and Training Center

The University of the District of Columbia plans to establish a Science,
Mathematics, Engineering and Technology (SMET) Research and Training Center
to develop and implement strategies to teach and retain students in SMET
courses. Specific objectives for organizing the Center are to: 1. Modify the
content of entry level (gate-keeper) science, mathematics and engineering courses
for undergraduate students to enable them to improve their performance and
retention rates in these programs, to improve performances on graduate and
professional school standardized tests,and increase their competitiveness for
employment opportunities; 2. Develop procedures that will be used to improve
science, mathematics, engineering, and technology capabilities of faculty and
students by identifying and planning activities such as seminars, symposia,
and workshops to expose them to current trends in the various disciplines; and
3. Obtain information on the current status of teaching and research facilities
in the Biological and Environmental Sciences, Chemistry and Physics, Mathematics
, and Engineering programs in order that a strategy can be developed to improve
laboratory infrastructure which includes obtaining equipment and adequate space
that will enhance faculty and undergraduate student research. The SMET Center is
designed to improve the academic performance and increase student retention.
Entry level (gate-keeper) science, mathematics and engineering courses in the
SMET curricula will be revised to add a research component to the laboratory
courses in order to emphasize reasoning skills and stimulate logical thinking.
This activity is designed to develop a long-term dynamic curricula that can adapt
to changing technologies. One hundred freshman students will be randomly selected
to participate in the center. Fifty students will have declared majors in one of the
SMET disciplines and 50 will be undeclared majors. The participants will be followed
through graduation to determine the impact of the SMET Center activities on course
attendance and completion rates, passing rates, research activities, grade point
averages, graduation rates, enrollment in graduate and professional schools and
employment. The Center administrators will consist of the principal investigator
, two co-principal investigators and an administrative assistant. The administrators
will plan and implement Center activities with the advice and support of the advisory
committee. The principal investigator will have the primary responsibility of
supervising all aspects of the program with the co-principal investigators assuming
the day-to-day operations of the Center, such as, organizing, conducting and,
implementing the activities. An advisory committee consisting of scientists and
administrators (7), as well as, two consultants will complete the administrative
core. All faculty in the SMET disciplines will be invited to participate in the center.
They will participate in enrichment activities (research, workshops etc.),
implemented by the Center. These activities are expected to produce energetic
faculty, committed to teaching and research. They will utilize improved teaching
techniques and computer technology to make courses interesting and stimulating.
The status and availability of research and teaching facilities in the SMET disciplines
at UDC will be assessed by consultants. The consultants (2), selected from UDC faculty,
will inventory current equipment and available space in the University for teaching
and research. Additionally, the consultants will provide information concerning
available research facilities in government, industry, and research-intensive
universities in Washington.